Normal Mode Studies of Even and Odd Degree Elastic and Anelastic Structure of the Mantle and Core

9509836 RITZWOLLER This research is to use the normal modes of the earth at low frequency (less than 12 mHZ) and long-wavelength (l less than 21) to study the earth's mantle and core. Data quantity has been increased by an order of magnitude over previous studies, and recent large deep events present normal modes for analysis that have never before been clearly observed. Concerning the mantle, elastic constraints will be particularly useful for estimating structures in the transition zone and the outer lower mantle where current mantle models differ most appreciably and in providing better information about the variations of Vs/Vp. With respect to the core, focus will be on modes sensitive to the anisotropic inner core and the deep outer core. ***